Learning to Teach Secondary Mathematics in Two Reform-Based Teacher Education Programs

9605030 Peressini This study will provide systematic information about the nature of two reform-based teacher education programs and their impact on prospective teachers. The researchers will follow a number of preservice secondary mathematics teachers as they participate in two university-based teacher education programs and through their first two years of teaching, in order to study closely how teacher education impacts their learning and development as mathematics teachers. Data will be gathered predominantly through semi-structured interviews, observations, and the collection and analysis of artifacts. The data gathering process will be organized around participants' knowledge and beliefs, participants' teaching, university teacher education experiences, and public school experiences. Products will be conference presentations, peer-reviewed journal articles, and postings to a website.